Howard University Young Scholars Project

9452761 Donaldson Howard University seeks to initiate a four week Young Scholars project in mathematics for 45 high school students entering grades 9 and 10 in the Washington, D.C. area. A variety of problem solving and hands-on activities integrated with research activities in mathematics will be provided. Extensive use is made of computers and graphing calculators as aids in learning and applying the mathematical ideas. Career exploration is an important feature of the program with special interest in stimulating student career interest in mathematics and scientific fields.